Conference: Analysis and Beyond; Princeton; New Jersey; May 21-24, 2016

This award provides funding to help defray the expenses of participants in the conference "Analysis and Beyond" that will be held May 21-24, 2016, at the Institute for Advanced Study in Princeton, New Jersey.

The conference program will feature lectures delivered by a host of international mathematical leaders and will highlight a wide range of disciplinary topics, including the following: dynamical systems, ergodic theory, functional analysis, harmonic analysis, mathematical physics, number theory, partial differential equations, and theoretical computer science. A unifying theme of the event is the contribution that Fields Medalist Jean Bourgain has made to each of these areas.